The Bicaudal-D function in RNA localization

9320283 Steward Localization of determinants in the oocyte and the early embryo represents a fundamental step in embryonic patterning in both Xenopus and Drosophila. In both organisms the localization of determinants is achieved through mRNA targeting. While several localized RNAs have been identified and studied in Drosophila and in Xenopus, the mechanisms responsible for this localization are largely unknown. The Bicaudal-D protein plays a role in the localization of mRNAs during oogenesis. It appears to be transported from the cystocytes to the pro-oocyte in early oogenesis. It may function either in the transport or tethering of RNAs in the oocyte. Dr. Steward proposes experiments addressing these basic questions: How does Bic- D function to localize RNAs? What is the function of the localized Bic-D RNA, and what factors interact with the RNA localization sequences in the Bic-D RNA to achieve its localization? ***